Transgenic Models of Neuroendocrine Cell Differentiation

A genetic approach will be taken to investigate cell specification in the embryonic pituitary. A transgenic mouse will be made in which expression of the thymidine kinase gene will be directed to melanotropes and corticotropes using the promoter of the pro-opiomelanocortin gene. Cells that express the transgene will be ablated and the consequences of this ablation on the differentiation of other pituitary cell types, repopulation of the pituitary with pro-opiomelanocortin cells and re-differentiation of the hypothalamic-pituitary axis will be determined. These studies offer an innovative, non-invasive approach toward understanding the role of cell-cell interactions in neural development and specification.